Chaos and Dimensionality in the Dynamics of Elastic Solids: Application of the Theory of Chaotic Vibrations to the Nonlinear Modelling of Flexible Structures

This Research Initiation Award is aimed at developing better techniques for obtaining finite degree of freedom nonlinear models of flexible structures. Overall, the project has three phases: experiments; signal analysis; and modeling. The modeling phase of the project represents an application of the theory or chaotic vibrations to the problem of nonlinear modeling.